Bioinformatics Education Dissemination: Reaching Out, Connecting, and Knitting-together (BEDROCK)

Biological Sciences (61)
Bioinformatics is central to biology in the 21st century. The use of computer based
analytical tools on electronically stored and distributed data is fundamentally changing
life science research and its application to problems in medicine, agriculture,
conservation, and forensics. In light of this "information revolution" undergraduate
biology curricula must be redesigned to prepare the next generation of informed citizens
and prepare those who will pursue careers in the life sciences. The BEDROCK initiative
(Bioinformatics Education Dissemination: Reaching Out, Connecting and Knitting-
together) is enhancing, expanding, and empowering a national community of bioinformatics
educators. The project goals include: 1) Identify and support faculty who can take a
leadership role in bioinformatics education; 2) Highlight and distribute innovative
approaches to incorporating bioinformatics data and techniques throughout undergraduate
biology education; and, 3) Establish mechanisms for the broad dissemination of
bioinformatics resource materials and innovative teaching models. To achieve these goals
we are holding a series of faculty development workshops around the country; recruiting
and supporting a group of innovative faculty to implement and disseminate bioinformatics
education materials; publishing resources for bioinformatics education and building a
networked collaboratory environment for developing and sharing bioinformatics
educational approaches. This project builds on the established pedagogical philosophy and
academic community of the BioQUEST Curriculum Consortium. Specifically,
BEDROCK extends our work in bioinformatics education over the last four years during
which we have established a community of collaborators representing the diverse
resources required to mount a national dissemination effort.